Polorization and Relaxation Effects in Atomic Photoionization Calculations

9707183
Kutzner
Theoretical and computational studies of atomic photoionization which include core polorization and relaxation are performed using many-body perturbation methods. This research from an RUI institution contributes substantially to the training of undergraduates in atomic physics.